Evaluating the Impacts of Cross-Curricular, Place-Based Pedagogy to Enhance Student Success

A goal of the Tribal Colleges and Universities Program (TCUP) is to increase the science, technology, engineering and mathematics (STEM) instructional and research capacities of specific institutions of higher education that serve the Nation's indigenous students. Expanding the STEM curricular offerings at these institutions expands the opportunities of their students to pursue challenging, rewarding careers in STEM fields, provides for research studies in areas that may be culturally significant, and encourages a community and generational appreciation for science and mathematics education. This project aligns directly with that goal, and moreover will inform the body of knowledge about the importance and conduct of undergraduate and graduate research experiences in recruiting and retaining underrepresented individuals into STEM studies, and preparing the next generation of STEM professionals. The connection of faculty to research and thereby the students to culturally and locally relevant research is an important step in retaining students who are more likely to pursue advanced degrees. For those students entering the workforce directly from a tribal college it is equally important that they have a well-defined skill set in mathematics, science, and technology for entry into the STEM workforce.

Northwest Indian College (NWIC) will enhance its current degree program in Native environmental sciences to include modules that capture scientific concepts in a Native knowledge or place-based context. The college will study the affects of this type of instruction on the academic success of American Indian students.